Parametric Methodology in Optimization

Questions about what happens to a solution to a problem of
optimization when the parameters on which the problem depends
are perturbed are important not only in assessing the stability
of mathematical models, but also in the design and justification
of computational procedures. Issues of parametric dependence
are also the key to effective utilization of `cost-to-go' functions
in dynamical optimization, whether in optimal control or stochastic
programming. This project would advance the methodology for dealing
with such dependence and explore its consequences for computation.

The latest tools in variational analysis, which are essential because
of inherent nonsmoothness in parametric dependence, would be applied.
Alternative forms of optimality conditions, focused especially on
perturbational robustness, would be investigated in a broad framework,
both finite- and infinite-dimensional. Cost-to-go functions in convex
dynamical optimization would be studied from the new perspective both
in deterministic continuous-time models, with their connections to
Hamilton-Jacobi theory, and in stochastic discrete-time models, where
the numerical potential will dominate.